SGER: Development of a Helical Resonator Based ESR Spectrometer

9404552 Castner Technical abstract: This Small Grants for Exploratory Research project is devoted to the development of a helical resonator (HR) electron spin resonance (ESR) spectrometer. The key component of the spectrometer is the high Q (quality factor) HR coil, which employs superconducting wire. In contrast to existing, single- frequency ESR spectrometers, the HR-based spectrometer will have a coil that resonates at several frequencies. The successful development of such a spectrometer would have a number of immediate scientific applications, but in the longer run might also lead to easily transportable commercial spectrometers with applications to a range of fields encompassing physics, chemistry, geology and biology. Non-technical abstract: Same ***